A Multi-User, Multi-Component System of Oceanographic Gear for the New Vessel, The Corwith Cramer

Sea Education Association will underake a Research in Undergraduate Institutions (RUI) instrumentation acquisition project as described in NSF document instrumentation will be placed in a pool of shared use equipment and made available to students and visiting users of the Associa- tion's new Sailing School Vessel, the SSV CORWITH CRAMER. The vessel will be used for undergraduate education and research through SEA's ongoing programs. The new instrumentation will upgrade educational programs by enabling students to have pract- ical, hands-on experience with modern oceanographic instrumenta- tion, and will provide visiting scientists with a well equipped facility for conducting research. Requested instrumentation are basic to physical, biological, chemical, and geological oceanographic investigations and commonly found on many research vessels.